1994 Gordon Research Conference on Crystal Growth; Proctor Academy; Andover, New Hampshire

9415435 Storm The objective of the conference is to faster closer interactions among the members of the crystal growth community and to increase and help disseminate new knowledge in the constituent field of scientific study that comprises crystal growth. There will be 100110 participants, 90% being United States Scientists, engineers and students. %%% The conference on crystal growth will cover recent advances in theoretical modelling of interfacial properties and processes related to growth from vapor, melt, solution and solid state reaction. ***